Travel Support Grant to attend the Fourth International Nanotechnology Conference on Communication and Cooperation. To be held on April 14-17, 2008 in Tokyo, Japan.

Abstract
Travel Support Grant to attend the Fourth International Nanotechnology Conference on Communication and Cooperation

Objective:
The objective of this proposal is to request travel funds from NSF to enable faculty and students from the US to attend the Fourth International Nanotechnology Conference on Communications and Cooperation (http://www.inc4.jp/) from April 14-17, 2008 in Tokyo, Japan. In addition, we plan to invite some of the younger members of the faculty, who will present posters highlighting their work.

Intellectual Merit:
This conference is being sponsored by SRC-SIA, NSF, IMEC, JEITA-JSI, and several European and Asian companies It will feature invited speakers and poster presenters from industry, academia, and government who will describe how to ?foster communication and cooperation on nanotechnology subjects among the organizers, sponsors and the world scientific community to stimulate and support economic growth in the 21st century."

Broader Impact:
Electronics technology has been highly leveraged and has been the major enabler of the computer, communication and consumer industries in the last 60 years, and has propelled the growth of the global economy to multi-trillion dollars. Most of the building blocks of these industries will reach fundamental limits by the end of the next decade. It is of fundamental importance that these limits are overcome in the next 10 years, perhaps through the use of nanotechnology. Global senior researchers, industry leaders and policy makers from North America, Europe and Asia will hold discussions on a variety of efforts in nanoscience, along with opportunities for collaboration